Developing Archaeological Field Methods and Laboratory Analysis in Undergraduate Education and Research.

This project seeks to expand the scope of archaeological field and laboratory activities through the acquisition of key pieces of equipment. The goal of the proposal is twofold. The first is to enable students to work more efficiently both in the field (e.g., through magnetometer-based subsurface survey) and in the laboratory (e.g., through the application of a database management system). The second is to expand the range of analysis and data presentation in student research through the use of more sophisticated equipment (e.g., transit mapping, high power microscopy, and photographic recording).